Linear and Nonlinear Optical Effects in Liquid Crystals

The proposed research examines phenomena resulting from the interaction of lasers with liquid crystals. The results will significantly improve our understanding of laser propagation in matter and will provide information about liquid crystal properties.